Department Level Computing: An Organizational Economics Perspective

This ROW planning grant award will support research in the design of information processing systems for the work environment. The key question addressed in the proposal is that of information allocation: how should resources be shared between a central processing unit and decentralized local computing sites? The allocation of resources and the criteria needed to ensure transmission of high-quality, timely information within the organization. The PI proposes to study this problem within an agency theory and transaction cost framework, and reviewers believed that the approach was likely to yield new insights.